US-France Cooperative Research: Spin and Charge Dynamics in Novel Low Dimensional Materials

This three-year award supports US-France cooperative research aimed at the study of transport dynamics in magnetic and correlated electron systems in novel materials. The collaboration brings together the complementary expertise of Srinivas Sridhar of Northeastern University and A. Revcolevschi of the University of Paris at Orsay. The US investigator brings to this collaboration expertise in microwave measurement techniques. He will conduct measurements of surface impedance. This is complemented by French experience in the area of crystal growth. The French investigator's group will prepare high temperature superconducting cuprates. These materials were chosen for this study because of their high quality and low dimensionality. The collaboration will advance our knowledge of phenomena related to the dynamics of charge, spin, superconducting pairs and quasi-particles, and superconducting vortices. ╣> / ╝ÁÂ%Á│¥╣└Á ¢Á/▓Á┤ ¿> ¥©╣¢ │?%%/▓?╝/¥╣?> ¥©Á╣╝ À?/% ╣¢ ¥? ╣┤Á>¥╣Â` ╣> ╝Á/% ¥╣_Á / ¥©╝ÁÁ ┤╣_Á>¢╣?>/% ?▓ÕÁ│¥ ╣> / >?> ©?_?ÀÁ>?┐¢ ¢Á/ ¼©╣¢ │?%%/▓?╝/¥╣?> ¥/,Á¢ /┤└/>¥/ÀÁ ?Â │?_║%Á_Á>¥/╝` Á┬║Á╝¥╣¢Á ?Â ¡½ />┤ Ñ╝Á>│© ╣>└Á¢¥╣À/¥?╝¢ ¼©Á ╝Á¢┐%¥¢ _/` Á└Á>¥┐/%%` ▓Á /║║%╣Á┤ ¥? ¢Á/╝│©Á¢ Â?╝ _╣>Á¢ >/└╣À/¥╣?>/% ?▓¢¥/│%Á¢ ┴╝Á│,¢ ║?%%┐¥╣>À ┴/¢¥Á ┤Á║?¢╣¥¢ />┤ ¢┐▓_/╝╣>Á¢